Nonlinear Waves Including Acousto-Optics (REU Supplement)

This program continues the same experimental and theoretical research into nonlinear waves and acousto-optics sponsored under previous NSF grants. The ultimate goal of the program remains to devise heuristically understandable formalisms of important interaction phenomena that are commonly described by highly abstract mathematics (nonlinear waves) or by models that often bear little relation to physical reality (acousto-optics). In the case of nonlinear waves, the emphasis is on the mutual and self interaction of coherent and incoherent spatial soliton entities such as pulsed and CW beams, and the description of such interactions in terms of attraction/repulsion, coupled modes, self focusing, frequency chirping, beam bending etc. Physical experiments will be performed, provided they are relatively simple in terms of instrumentation and technology. Numerical simulations will form an increasing important part of the program. The emphasis on acousto-optics will be on the weak and strong interaction of arbitrary sound and light fields in physically realistic configurations. Formalisms will be in terms of mutual scattering and rescattering of acoustical and optical plane wave spectra. Relatively short term device research may be part of both research areas, either as a convenient route to familiarization or simply to follow up some promising applications.